Technical Studies for a Massive Neutrino Detector

This is a SGER grant covering a period of twelve months. The proposed tasks are:

To explore different neutrino detector designs in the proposed Homestake/Yeats formation.

To work closely with manufacturers who are developing new photon detectors (PDs) so that the new PDs will be suitable for detecting neutrinos. For example, they would supply specifications and check PDs for characteristics that are unique to neutrino detection, quantities such as: quantum efficiency as a function of wavelength, ability to stand pressure, longevity of the PDs, amount of intrinsic radioactive materials in the PDs, etc.